Instructional Equipment for an Undergraduate Cell Biology Laboratory.

This project is improving undergraduate laboratories in all Biology by adding equipment to conduct the separation and characterization of macromolecules through centrifugation, electrophoresis, spectrophotometry and similar techniques. The Principal Investigator is developing a Laboratory Techniques Manual featuring "do-able" exercises for undergraduates at three levels: I, Basic Procedures; II, Intermediate Level Techniques; and III, Advanced protocols. His report of this work to the American Society for Cell Biology has elicited so favorable a response that prospects for this project's achieving a substantial national impact are encouraging. Careful scheduling of the laboratories will permit the same instruments to contribute to modernization of the Department's teaching of Molecular Biology, Microbiology, Immunology, Genetics and Biochemistry, as well as serving their central function in Cell Biology.